A 20-inch Telescope for the Vassar College Observatory

The college is purchasing a 20-inch telescope to use with a CCD camera or a CCD spectrograph. The new equipment expands the observational component of a number of courses, increases the effectiveness of the college's public outreach programs, and expands the possibilities for student research, particularly in the area of supernova monitoring. This 20-inch teaching telescope is part of a larger plan for a new college observatory.